Acquisition of X-Ray Diffraction System for Materials Research

9601885 Sleight An X-ray diffraction system for materials research will be acquired by Oregon State University. The system will support studies of thin-film superconductors, transparent conductors, electroluminescent devices, magnetic semiconductors and dielectrics; thermal expansion of materials and other dynamic studies; nonlinear optical crystals; and nanocomposites. The proposed instrument will expand current capabilities for structural characterization of materials by including components for analyzing thin films and collecting data quickly, both at low and high temperatures. %%% The added measurement capabilities will provide a means for establishing an understanding of the basic relationships among structure, properties, and processing conditions for a given material. These relationships will then be used as a basis for creating new or improved materials. The proposed activities will be performed in a collaborative interdisciplinary mode, enhancing both the prospects for solving difficult problems and the research training of students. ***